ENGINEERING RESEARCH EQUIPMENT: Computer for Research on Intelligent Systems

9411579 Morse The Department of Electrical Engineering at Yale University proposes to purchase a Sun Microsystems SPARCstation 10 Model 41 computer workstation which will be dedicated to support research in systems engineering at Yale. The computer will be used by students and post doctoral fellows within a research group headed by A.S. Morse. The machine will be used as a research tool in conjunction with projects in the areas of self-adjusting, intelligent and hybrid dynamical systems. The computer will be used primarily for simulation studies, for system synthesis, for software development, and for graphic and visualization applications. ***